Advanced Simulator Networking for Vehicle and Equipment Distributed Product Design

EEC-0003047
Papelis

This project aims to link the revolutionary new National Advanced Driving Simulator (NADS), located at the University of Iowa, with the Virtual Reality Applications Center (VRAC), located at Iowa State University, through the existing Iowa Communications Network (ICN). The two universities us the ICN as part of their participation in the NSF very high speed Backbone Network Service (vBNS) and related Internet II activity. Both facilities cooperate with Deere & Company which strongly supports the project and will provide industrial-quality test problems and support in the form of personnel that will participate in the design process and assist with demonstrations. Challenges and benefits of linking these facilities will be investigated through two demonstrations. The first will use two operator-in-the-loop simulators. The second demonstration will focus on an "engineering tele-presence" application.